Towards a Mathematical Theory of Space-Time Codes for Multi-Antenna Wireless Communication

Abstract

It is expected that future generations of wireless communication
systems will provide a wide variety of services such as voice,
video, high speed data, and interactive multimedia for a variety
of users ranging from the stationary to the highly mobile --- with speeds
ranging from the pedestrian to high vehicular speeds --- and in a wide
range of outdoor (urban downtown to rural) as well as indoor
(homes, office buildings, factories, etc.) propagation environments
commonly encountered in everyday life. Battery limitations in
hand-held devices or laptops and the scarcity of bandwidth relative to the
ambitions of such services dictate the need for designing systems in which
these resources must be used as efficiently as possible.

This project will focus on developing a
mathematical theory of two-dimensional ``space-time'' codes based
on algebraic number theory for reliable, robust and
resource-efficient data transmission over multi-antenna wireless
communication links. Robustness of performance to a variety of
channel conditions will be emphasized by considering general code
design criteria as will problems related to efficient
decodability. Scalable, high performance space-time codes that can
be dynamically adapted to changing channel conditions due to
changes in propagation environments, scattering geometries, and user
mobility will be investigated. Questions of both existence
and construction will be pursued. A new level of generality is
introduced in this project so that knowledge acquired
for code design for one model can be applied to other models.
The long history of mathematics shows that the very level of
generality itself can be a guide to what good codes should look
like.